A Computer Laboratory for Calculus, Linear Algebra and Differential Equations

Students are using the graphical, numerical and symbolic capabilities of Mathematica, running on Macintosh IIcx computers, to analyze problems and solve sequences of problems which are designed to lead them to experiment, search for patterns, and make conjectures. The institution will contribute an amount equal to the award.//